Sequence Stratigraphy of the Northeastern Gulf of Mexico: An Integrated Seismic, Well Log and Biostratigraphic Approach

A sequence stratigraphic study of the Neogene of Gulf of Mexico which has high resolution seismics, well logs and continuously cored boreholes. The results will be compared to a similar study being undertaken along New Jersey margin and the recent sea-level change and depositional models will be tested.